Field Theory Approaches to Hadronic Systems at Finite Density and Temperature

This work will study relativistic field theory models of hadronic systems at finite density and temperatures. Sum rule techniques will be used to establish links between nuclear phenomenology and the underlying QCD theory of the strong interaction.